Collaborative Research: Structure Alignment-based Machine Translation

Researchers at New York University, Monmouth University and the
University of Colorado are constructing Japanese/English and
Chinese/English machine translation systems which automatically acquire
rules from ``deep'' linguistic analyses of parallel text. This work
is a natural culmination of automated example-based Machine
Translation (MT) projects that have become increasingly sophisticated
over the last two decades. The following recent advances in Natural
Language Processing (NLP) technologies make this inquiry feasible: (1)
annotated data including bilingual treebanks and processors trained on
this data (parsers, PropBankers, etc.); (2) semantic post-processors
of parser output; (3) programs that automatically align bitexts; and
(4) bilingual tree to tree translation models.

Natural languages vary widely in the ordering of corresponding words
for equivalent expressions across linguistic boundaries and within a
single language. This research investigates ways to minimize the
variations within a single language using a type of semantic
representation (GLARF) that is derived automatically from syntactic
trees. Such semantic representation provides for: (1) a reduction in the
number of ways of representing the same underlying message, and (2)
a way to handle long distance dependencies (e.g. relative
clauses) as local phenomena. Therefore, there is no need to resort to
arbitrarily long sentence fragments or large trees for
training. Furthermore, since less data is needed, it
minimizes the sparse data problem.

In the training of this translation model, because of (1), the number
of mapping rules between the source tree and the target tree is
reduced. The translation model, then, is a tree transducer, with
``deep'' linguistically analyzed trees for both source and target
representations. In order to provide efficient computer algorithms
for such partial mappings, this research needs to focus on
(a) the training algorithm and the (b) the constraints over the
mapping rules in order to reduce the computational complexity.

This research is expected to yield several advantages: The core
architecture of this transducer using ``deep'' linguistic analyses
should yield more accurate results. The GLARF architecture allows
control over different granularity of automatically-obtained
linguistic analyses.

Broader Impact: The demand for machine translation spans from the
local government (e.g. police forces) to national government
(e.g. CIA) and the private sector. Given the growth of the Internet
outside the English speaking world, better machine translation is of
critical importance for the broader community. This work directly
affects the ability of English speakers to understand websites written
in Chinese and Japanese, two of the most widely used languages on the
Internet. The technique is generalizable to other language pairs and
can ultimately have even wider impact.